Academic Research Infrastructure: Acquisition of a Grand Challenge Data Laboratory

9601817 McBryan, Oliver Toomre, Juri University of Colorado, Boulder Academic Research Infrastructure: Acquisition of a Grand Challenge Data Laboratory This Academic Research Infrastructure award supports the acquisition of Grand Challenge Data Laboratory consisting of a high speed computational cluster, visualization equipment, fast disk storage, mass storage capability, and a high speed network interconnect. The research project supported by the equipment include: 1. Aerospace engineering research involving clustered fields projects. These projects have applications in the design of aircraft, the solution of three-dimensional superconductivity problems, and the solution of distributed control at Colorado. 2. Geophysical and astrophysical turbulence problems exemplified by the research of the Grand Challenge Application Group team funded at Colorado. 3. The development of multi-cluster computing algorithms using new mass stores and high speed networks. 4. Parallel tools and performance evaluation in a distributed computing environment. 5. Visualization of very large datasets.